Numerical Methods for Molecular Dynamics

The primary goal of the research is to create more efficient
propagators for atomistic computer simulations
and thus to make possible more ambitious scientific calculations.
New deterministic and stochastic algorithms for both dynamics and sampling
are to be constructed using such techniques as operator splitting, modified
energy functions that compensate for finite steps,
and optimization of method parameters, together with physical insight.
Promising algorithms are tested and compared using mathematical analyses
and computer experiments. Tools for mathematical analysis include the
concept of effective accuracy, the method of modified equations, linear
analysis, and KAM theory. Computer experiments are performed on model
problems chosen to reveal unambiguously the properties of interest.
Faster algorithms are to be implemented in molecular modeling software
being developed for widespread use in a couple of projects at the
University of Illinois Beckman Institute. Most of the work is
sufficiently general that is transfers to other types of problems such
as occur in astrophysics, wave phenomena, and mechanical engineering.
And many of the techniques can be abstracted and applied to generic problems.

Computer simulations of atomic detail are heavily employed in physics,
chemistry, materials science, and structural biology.
These calculations require the generation of sequences of atomic
configurations either for the purpose of modeling actual motion or for the
purpose of calculating averaged values and structures
from a wide range of representative samples. The computing time ranges
from hours to months, so it can benefit tremendously from faster algorithms.
It is the objective of this research project to do this:
to create much more efficient propagators for dynamics
and sampling that reliably achieve acceptable levels of accuracy.
The construction of such algorithms employs ideas from mathematics
and computer science together with physical insight.
Promising algorithms are tested and compared using
mathematical analyses and computer experiments.
The successful ones are implemented in molecular modeling software
being developed for widespread use in a couple of projects at the University
of Illinois Beckman Institute. These advances in methodology are also to be
disseminated in articles targeted to practitioners.
Many of the techniques will apply not only to molecular simulations
but also to simulations in astrophysics, structural mechanics, and fluids.
Potentially, the availability of accelerated propagation algorithms
will lead to a variety of scientific results that otherwise would not be
obtained. The performance of the research will be
a valuable interdisciplinary experience for a graduate student.